A Regulatory Cascade for Entry into Anaphase

Abstract 9722920 Wolniak Mitosis is the process that facilitates the orderly separation and apportionment of replicated chromosomes so that each daughter cell possesses an entire complement of the genetic material. The regulation of mitotic progression is now known to involve a number of signal transduction events at specific time point during the process where enzymatically induced modifications of proteins have profound effects on the occurrence and timing of subsequent events. The research of this grant is focused on the regulatory states that trigger sister chromatid separation at the onset of anaphase, in stamen hairs of the spiderwort plant, Tradescantia virginiana. Stamen hair cells exhibit a remarkable predictable rate of progression through metaphase, and thus, are uniquely suited for the analysis of regulatory events that affect the timing of sister chromatid separation. Kinases and phosphatases are enzymes that add or remove phosphate, respectively, from substrate proteins, and thereby affect their behavior, activity and distribution. As a consequence of these phosphoylation events, the altered substrate proteins affect the rate of mitotic progression. By microinjecting small quantities of peptides that represent phosphorylation domains of substrate proteins into stamen hair cells at know time points after nuclear envelope breakdown, this laboratory found that the regulation of progression through metaphase is under the control of a multifaceted phosphorylation cascade. The current project expands on this approach and findings, and utilizes the screening of a cDNA library made from stamen hair cells to isolate cDNAs that encode bone fide protein kinases and kinase substrates from stamen hair cells. These cDNAs will enable them to make peptides that represent legitimate stamen hair cell gene products for microinjections designed to determine how and when their phosphoylation affects mitotic progression. This research will furthe r our understanding of the biochemical mechanisms involved in mitosis. %%% This research is using the stamen hair cells of the spiderwort plant to examine the regulatory processes involved in cell division. The research is using recombinant DNA techniques to determine the protein kinases, phosphatases and the proteins they modify, and how they regulate mitosis. ***